Mathematical Sciences: Weighted Norm Inequalities and Differential Equations

In this project the principal investigator will continue his study of questions related to weighted norm inequalities for integral and differential operators. Specifically he will focus upon weighted norm inequalities for Poisson integrals, fractional integrals, Hilbert transforms, and elliptic and parabolic operators. This theoretical work is applicable to (and motivated by) the following problems: the derivation of sharp estimates for the fundamental solutions of degenerate parabolic equations, the estimation of the distribution of eigenvalues of various operators, and the elucidation of the continuity properties of solutions of integral and differential equations. Much of what mathematicians call "analysis" involves deriving and applying "a'priori" estimates on the solutions of integral and differential equations. An a'priori estimate esentially provides a mathematician with information about a solution that is contained in the equation itself, and its derivation does not require a detailed knowledge of the putative solution. As an illustration, solutions of certain types of boundary value problems for elliptic equations satisfy an a'priori estimate of the following type; namely, the solution is bounded from above (below) by the largest (smallest) value of the boundary values. In this project the principal investigator will use what are called "norm inequalities" to derive sharp a'priori estimates on the solutions of various integral and differential equations.